Chow Groups of Projective Varieties

This project is concerned with the geometry of algebraic
varieites. It builds on past experience which indicates that
much can be learned about the geometry of a given algebraic
variety by studying its Chow group. The Chow group is obtained
from the free abelian group on all subvarieties of a given variety
by modding out by the relation of rational equivalence. For
algebraic curves the Chow group is a close relative of the
Jacobian. While the Chow group is known to have good functorial
properties, it is often very difficult to compute. Thus it is
difficult to gain access to the subtle and valuable information
that it frequently contains. This investigation focuses on three
different aspects of the problem of computing Chow groups. First
the torsion subgroup of the Chow group is being studied with an
emphasis on the quotient by the subgroup generated by cycles
algebraically equivalent to zero. Secondly, the relationship
between the Chow group and singular cohomology with rational
coefficients is being investigated. The Hodge Conjecture is an
important concern here. The theory of Abelian varieties and
techniques from classical algebraic geometry will be brought to
bear on this problem. The third line of investigation involves
the relationship between the Chow group and singular cohomology
with integrer coefficients. An ancient guidepost here was the so
called Integral Hodge Conjecture. It has turned out that the
Integral Hodge Conjecture is false in some instances. The extent
of its failure is poorly understood, so the principal investigator
and a PhD student are working to clarify this.

To a significant extent, the value of basic research in algebraic
geometry results from the tendency of mathematicians to reduce
problems in various other fields of mathematics to problems in
algebraic geometry. This tendency is due to the ultimate
simplicity of algebraic geometry, where remarkably effective
approaches to certain geometric problems have been developed
with minimal reliance on infinite processes. While the initial
translation of a problem from the physical world into mathematics
frequently involves limits, derivatives, integrals, and further
notions involving infinite processes which go well beyond ordinary
calculus, mathematicians have learned to search for hidden aspects
of these problems which are essentially of an algebraic or finite
nature. Neither the task of translating real world phenomena into
mathematical problems, the task of discovering a hidden algebraic
core in a problem formulated using infinite processes, nor the
task of solving this core problem using algebraic geometry is
often easy. Nonetheless, this lengthy process has led to profound
insights. For example, algebraic geometry and some of the
algebraic varieties studied by the principal investigator are of
great interest to physicists in their current attempts to unify
quantum mechanics with the theory of gravity.